Novel Design Concept for Blast- and Seismic-Resistant Civil Infrastructures

Design for blast resistance has been so far considered primarily for military structures. Some
of the design target levels include high-thrust, high-penetration, and high-yield missiles with or
without nuclear capabilities. While designing to these levels leads to conservative and costly
structures if applied to the protection of the public infrastructure, recent events around the world
have shown the vulnerability of civilian infrastructures to blasts of low-yield non-nuclear
capabilities. These events have also confirmed the need to develop construction methods that can
safely and economically be implemented in standard design practice. It can also be shown that
blast-resistant structures are designed with a very different philosophy than seismic-resistant
structures, and rightfully so, because of the different nature between blast and seismic loads. As
such, new design philosophies are necessary that can overcome this contradiction in requirements.

New methodologies are currently needed for the design of structures to simultaneously resist
blast and seismic loads because of recent concerns in homeland security and the new zoning of
the US seismic maps, which have increased seismic demands over a larger area of the US. Under
this scenario there is a lack of professional education in the aforementioned research areas, and
as such universities around the nation must develop courses that can provide the necessary
expertise in blast and seismic protection of structures, and meet future design and engineering
needs. The professional goals of the PI are to develop research and educational initiatives that
can provide the PI with the necessary tools to; (1) enhance his understanding for simultaneously
designing structures to resist blast and seismic demands, (2) develop collaborative research and
education programs with other engineering centers and private industry, such as the Maneuver
Support Center located in Fort Leonard Wood (MANSCEN) and Douglas Taylor Devices, Inc.,
and as importantly (3) recruit graduate students that upon graduation can transition to national
laboratories and engineering firms specializing in the area of homeland security.

In the first CAREER proposal submission the PI has proposed a novel design concept for
the blast- and seismic-resistant design of civil infrastructures. However, due to the long-term
costs and time commitments necessary to develop the overall design concept, the main goals of
this Small Grants for Exploratory Research (SGER) are three fold:

o To analytically evaluate the novel design concept at the component level before extensive
experimental and analytical research are carried at the sub-system and global-system level.
o To recruit one master graduate student to assist the PI during this exploratory phase.
o To introduce the design concept at conferences that deal with blast and seismic issues that
can provide the PI with the necessary feedback on this research initiative.